Magnetic Fields from the Photosphere to the Corona: Second ATST-EAST Workshop in Solar Physics

Conference support for the workshop "Magnetic Fields from the Photosphere to Corona: 2nd ATST-EAST Workshop in Solar Physics", 09-11 November 2011, Washington, D.C.

Two new large telescopes to study our local star (the Sun) are under way. The ATST (Advanced Solar Technology Telescope) is a project of the National Solar Observatory currently in progress, while the European Solar Telescope (EST) is under discussion and design by the European Association for Solar Telescopes (EAST). These two telescopes will bring new enabling technologies and capabilities to the study of the Sun.

This workshop brings together the scientific and technical communities behind the ATST and EST efforts. This meeting is the second in a series intended to bring together precisely those scientists and engineers involved in these two new US and European projects. The meeting allows the participants to exchange ideas on science, technology, and operations of the telescopes.